Surface UV Irradiance and PAR Variability over Antarctica

9725403 Ricchiazzi The discovery of the Antarctic ozone hole in the early 1980's focused concern on whether enhanced ultraviolet (UV) surface irradiance levels due to ozone depletion would have a negative impact on the Southern Ocean ecosystem. While subsequent photobiology research has shown negative effects on photoplankton, zooplankton and fish larvae due to increased UV radiation, it is difficult to extrapolate localized studies to a broad spatial scale. Satellite-based UV and photosynthetically active radiation (PAR) mapping techniques, developed through prior research support, offer a way to extend the results of photobiology point- measurement to large spatial scales. The mapping algorithm uses specific satellite images of cloud and ozone distribution to estimate UV and PAR irradiance levels of large geographic areas. The goal of this research is to test and improve performance of the UV and PAR mapping algorithm. Since a significant fraction of the overall biological productivity occurs in near-coastal waters, this project will focus special attention on improving the performance of the mapping technique near the coast. Simulations made with Monte Carlo radiative transfer models suggest that these coastal regions are subject to significant surface irradiance enhancement. The field study will deploy a newly modified surface radiometer with spectral sensors selected to optimize the retrieval of cloud optical depth and surface albedo. The improved retrieval performance of this system should significantly enhance the ability to test the accuracy of the mapping algorithm. This project will also investigate how the new AVHRR-3A satellite sensor can be used to improve the algorithm. Initial analysis indicated that information from this new sensor could be useful for obtaining much more frequent and accurate surface albedo maps, information that is a necessary ingredient for the mapping algorithm. These new approaches to interpreting satellite and surface mea surements will provide information critical for an interpretation of the effects of ozone reduction on the biological communities in Antarctica.